Surface Chemistry for Molecular and Biomolecular Interfaces to Group IV Semiconductors

Abstract
CHE-0314618
Hamers/Wisconsin

With the support of the Analytical and Surface Chemistry Program, Professor Hamers and his coworkers at the University of Wisconsin-Madison are examining routes to the surface modification of diamond and silicon surfaces. Photochemical and electrochemical modification routes are developed that will allow the attachment of chemically and biochemically interesting species to the surface of active semiconductor materials. Robust chemical and biological sensor platforms result from the attachment process. Readout of these sensor structures is accomplished through the application of electrochemical impedance spectroscopy.

The ability to selectively modify and control the attachment of proteins and other biologically important molecules to semiconductor surfaces is important for the development of sensor systems. With the support of the Analytical and Surface Chemistry Program, Professor Hamers and his coworkers are exploring novel photochemical and electrochemical methods for the modification of diamond and silicon surfaces. These robust sensor structures are then characterized using electrochemical impedance spectroscopy. This work promises new routes to important chemical and biochemical sensor arrays.